Mathematical Sciences: Research in Mathematical Logic from Computer Science

This award will provide partial support for one year for a graduate student in mathematical logic who will do thesis research under the joint direction of Anil Nerode (Professor, Department of Mathematics, and Director, Mathematical Sciences Institute) and Juris Hartmanis (Professor, Department of Computer Science). The research uses methods of mathematical logic to study the complexity of parallel computation. Parallel computation is perhaps the most promising route to vast increases in computational speed, but it is notoriously difficult to analyse compared with the traditional serial computation that most existing computers do.